6th International Symposium on Molecular-Plant-Microbe Interactions, Seattle, Washington, July 11-17, 1992

The Sixth Meeting of the International Society of Molecular Plant- Microbe Interactions (IS-MPMI) will be held in Seattle, Washington, 11-17 July, 1992. This society has member scientists from 25 countries who are studying interactions between bacteria, and fungi with their host plants, using molecular techniques. These interactions include both the microorganism and the response of the host. Members of the society are also interested in the consequences and applications of these interactions to biotechnology. This meeting represents the major forum for the exchange of information and ideas between scientists whose research is providing a rapidly expanding body of knowledge in an increasingly important area of research in plant science.